Investigation of Enzyme Catalysis: Mechanism at the Levels of Subunit Function and the Chemical Transformation

This project will advance understanding of substrate channeling in metabolism, allosterism in protein function, and the chemistry of enzyme catalysis. Three systems will be studied: (1) the bacterial bienzyme tryptophan synthase complexes, (2) the human liver alcohol dehydrogenases, and (3) the sheep liver aldehyde dehydrogenase. The tryptophan synthase bienzyme complex catalyzes two sequential steps in a metabolic pathway; the enzyme exhibits ligand-mediated allosteric interactions between the . and sites, which are connected by a 25 A-long tunnel. It is postulated that the common metabolite indole is transferred between these sites via the tunnel. This proposal will investigate: (a) the significance of the tunnel in metabolite transfer, (b) the mechanism and function of the allosteric effects, and (c) the chemical determinants of substrate specificity. Through genetic engineering, the human liver alcohol dehydrogenase isozymes are available in large amounts. This proposal will determine the roles played by protein conformation change and by electrostatic fields in hydride transfer. The aldehyde dehydrogenase-catalyzed oxidation of aldehydes occurs via an acyl-enzyme intermediate. How the oxidation state of bound coenzyme influences the properties of the acyl-enzyme will be studied. Rapid kinetic techniques, chromophoric substrates or analogues, and 1-H NMR will be used. Some of the tryptophan synthase and alcohol dehydrogenase work will involved studies of mutant enzymes prepared by site-directed mutagenesis.